Spaces of Hyperbolic 3-Manifolds

Some of the topics that will be studied include: the topology of
quasiconformal deformation spaces, classification of projective
structures, infinitely generated Kleinian groups and new approaches to
the density conjecture for geometrically finite Kleinian groups.

A 3-manifold is a mathematical object of fundamental interest. For
example the space we live in is a 3-manifold. Most 3-manifolds are
hyperbolic. That is they have a metric of constant curvature equal to
-1. In this project the principal investigator will study 3-manifolds
that carry whole families of hyperbolic metrics. These deformation
spaces have an extremely complicated structure that resembles the more
well known Mandelbrot set. The principal investigator will also study
complex projective structures on surfaces. Projective structures are
intimately related to hyperbolic 3-manifolds and results about one
object often lead to results about the other.